Oceanographic Technical Services 2006 - 2008, R/V Hugh R. Sharp

0612872
Deering
This 3-year award to University of Delaware provides support for technical services during NSF-funded programs on R/V Hugh R. Sharp, a new 146' general purpose research vessel beginning service in 2006 to replace R/V Cape Henlopen, a 120' ship operated by the university for more than 20 years as part of the University-National Oceanographic Laboratory System research fleet. University of Delaware will provide one or two shipboard technicians on each cruise of R/V Sharp to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. In addition to these basic support functions, the technical support group will maintain and provide portable multibeam sonar and undulating vehicle systems to qualified users requiring those services in support of their funded research programs on R/V Sharp or other UNOLS vessels, as schedules allow.
***